Structural Chemistry and Properties of Ceramic Microwave Dielectrics

Davies 9421184 The studies in this proposal focus on the relation between the structures and loss properties of a series of perovskite dielectrics. While these tantalate-based oxides have the lowest losses of all the microwave ceramics, optimization of their properties requires careful control of their chemistry, processing, and degree of structural order. Preliminary investigations made on one of these systems have indicated that the dielectric losses associated with internal domain boundaries can be reduced by introducing selected chemical substituents. The proposal describes a series of experimental studies designed to understand and explain this effect, and outlines new approaches for improving the loss properties of other petrovskite dielectrics. Many aspects of this work are being conducted in close collaboration with scientists from industry, and several aspects of this study are expected to have a direct impact on the processing and production commercial ceramic resonator systems. %%% The goals of this work are to understand what aspects of the structures of the existing microwave dielectric materials are critical in realizing an optimized electronic performance, and to use these crystal chemical insights to enhance the performance of other oxide systems. ***